Poisson Lie groups, integrable systems, and representation theory

The primary goal of this project is to investigate the geometry of several
large classes of Poisson structures on Lie groups and their homogeneous
spaces. They include the Belavin-Drinfeld Poisson structures on complex simple
Lie groups and their Poisson homogeneous spaces, and Poisson structures on
Kac-Moody groups and real simple groups. The project is based on employing novel
techniques from Lie theory and ring theory which in particular relate
the above geometric problems to studies of the primitive spectra of universal
enveloping algebras of Lie algebras that are in general neither solvable,
nor semisimple. The principal investigator will work on applications of these
problems to the study of integrable systems (whose phase spaces are symplectic
leaves of the above Poisson structures) and representations of Hopf algebras,
e.g. algebras of regular functions on non-standard quantum groups constructed
by Etingof-Kazhdan and Etingof-Schedler-Schiffmann by explicit quantizations of
Belavin-Drinfeld r-matrices. He will further address applications to combinatorics:
the theory of cluster algebras of Fomin and Zelevisky, and intersections of dual
Schubert cells (related to symplectic leaves of special Poisson structures on
flag varieties). The second part of the project concerns applications of the
infinite dimensional Poisson Lie group of formal pseudo-differential operators to
problems in the theory of bispectrality of Duistermaat and Grunbaum, e.g. using the
corresponding dressing action of Semenov-Tian-Shansky to construct subalgebras
of infinitesimal "additional symmetries" of the KP hierarchy that preserve manifolds
of bispectral wave functions. The project will further investigate relations
between bispectrality and the prolate spheroidal phenomenon of Landau, Pollak, and
Slepian, which first appeared in time-band limiting but consequently played an
important role in random matrix theory as well. In particular this proposal targets
integral operators related to the infinite dimensional class of bispectral algebras
of ranks 1 and 2, all of which posses commuting differential operators, proved
in previous works of the investigator.

The major problems in many areas of mathematics and mathematical physics are
related to the study of the symmetries (transformation groups) of the
objects or models, under investigation. Recently generalized symmetries (Hopf
algebras) have played an increasingly prominent role in many fields. This project
investigates geometric structures related to deformations of classical symmetries
(algebraic groups) to generalized symmetries (Hopf algebras) and their applications
to problems in dynamical systems, algebra, combinatorics, and applied mathematics.